CISE Research Instrumentation: Flexible Actuators and Sensors for Robotics Research

This award is to purchase manipulation and sensor and control processing equipment for projects in intelligent distributed control of materials handling, object manipulation using tactile sensing, coordinated motion and grasp planning, and finding surface boundaries in images. The award will allow the University of California, Berkeley to expand its RobotWorld system, update its LYMPH multiprocessor, and acquire a frame grabber and color camera to support fast image acquisition and processing. University of California, Berkeley will be purchasing manipulation and sensor and control processing equipment to support research in robotics and computer vision. The equipment will include an expansion of its RobotWorld system, an update to its LYMPH multiprocessor, and a frame grabber and color camera.